The Influence of Fault Zone behavior on the Geometry of Thrust Systems and Emplacement History of Thrust Sheets

Models for emplacement of large thrust sheets make simplifying assumptions regarding fault properties and presence of simultaneous slip over the entire fault surface. In an actual thrust system fault characteristics vary from fault to fault and from one place to the next along and across strike, reflecting changes in mechanics of the fault system and variations of conditions within individual fault zones. This research will address the complexities of fault deformation in the Mountain City Window of Tennessee, and the along-strike variations of fault zones and how these variations in fault behavior have influenced the overall geometry of the thrust system. Results will contribute to developing more realistic models for thrust development.